NSF Young Investigator

This is an N.S.F. Young Investigator Award. Dr. Levin plans to examine the role played by hormones in the development of sex differences in bird song in a tropical species in which both sexes sing. She also proposes to investigate the possibility that environmental factors such as latitude may affect the degree to which hormones control adult song.